PYI: Equation Solving and Non-Blocking Networks

The field of continuous complexity studies numerical analysis algorithms from a mathematical point of view This research seeks sharper estimates of the density of convergence and getting density bounds for Newton's method was based on a multi-layer compactness argument which will be extended to a wide class of purely iterative root finding methods. Non-blocking networks will also be investigated. In particular designs for easily implementable networks with a small number of edges will be sought.